A Cooperative Seminar on the Subject of Vibration Problems in Engineering Combined with Visits to Research Laboratories: June 14-August 3, 1986; Xi'an, China

The objective of this project is to provide travel support for a small (5-7) group of U.S. researchers to learn about vibration research in China and to initiate contacts which might lead to future cooperative research. Vibration is one of the most fundamental elements among important subjects of applied mechanics. The visit of the U.S. team will be made on the occasion of the International Conference on Vibration Problems in Engineering and the exhange among researchers will be made via a cooperative seminar and visits to research laboratories in conjunction with the conference activities.